SBIR Phase II: Air-coupled MEMS-based Ultrasound Transducer for Assessment of Tympanic Membrane Motion

This SBIR Phase II project will enable the development of the first known commercial medical ultrasound device utilizing air-coupled Capacitive Micromachine Ultrasound Transducer (CMUT) technology to diagnose otitis media. Otitis media is the number one indication for which antibiotics are prescribed for children, and the number one cause for surgery in childhood, costing $15+B annually in the US and resulting in 30M annual doctor visits in the US alone. Clinical studies show a diagnostic error rate averaging 50%. Today's tools are unable to accurately determine the presence, and much less the type, of effusion in the middle ear. This leads to significant over- prescription of antibiotics, over-referrals to specialists, and unnecessary surgeries. OtoNexus Medical Technologies, Inc. is developing a simple and sensitive medical device to provide diagnostic data to quickly and accurately diagnose both presence and type of otitis media.

The work of this project will establish fast and economical assessment of CMUT sensor manufacturing performance, by electrical and acoustic measurements. OtoNexus will design and construct test systems to rapidly evaluate electrical and acoustical performance of CMUT sensors as an assessment of production quality. The Electrical Vector Impedance (EVI) test fixture provides an electrical surrogate measure for acoustic output, which can be performed rapidly at the wafer-level with 100% sampling. The Acoustic Output Measure (AOM) test fixture evaluates the pressure emitted by CMUT, and other acoustic performance parameters, after speculum final assembly. This project will develop test fixtures, methods, and processes for assessing production reliability and process consistency. The OtoNexus ultrasound device will be marketed to pediatricians and other primary care physicians, and will decrease prognostic uncertainty and resultant over-prescription of antibiotics, and place the tools for more accurate diagnosis into the hands of the very first clinician the patient sees. This will reduce costs by decreasing both antibiotic usage and specialist referrals and will also decrease required physician time by enabling a nurse or other physician extender to perform the test for otitis media.